Optimizing Workflow and Integration in NSDL Collections

This NSDL Services project is creating turn-key software for collection developers to manage their organizing and cataloging tasks and to create and share item-level metadata. In addition a digital library workflow management knowledge archive is under development. The project complements the work of the NSDL Core Infrastructure (CI) team as it harvests and integrates collection records into the NSDL Metadata Repository so that users may conduct in-depth searches for items across diverse science, technology, engineering, and mathematics education collections. The impact of these services promises to have broad reach across a spectrum of educational levels.